Media and Communications in Legislatures

This research proposes to examine how legislative leaders help their parties shape the issue agenda outside of the legislature. While the process by which issues are framed internal to legislatures is reasonably well understood, what is less clear is how issues are presented external to a legislature and how the media's attention is focused on those issues. This research focuses on the strategic considerations of party leaders, party members and the media in presenting and resisting issues in an information rich setting. New techniques for content analysis are brought to bear on a large amount of data collected by the PI.